SGER: Exploratory Study of Data Mining Techniques Applied to Educational Research Data

This SGER proposal seeks to apply emerging research on data mining to the analysis of educational video text. The proposal will review in depth existing literatures from both the mathematics research community and the education research community. An advisory team of leading mathematics educators and statisticians will review the work. One of the expected outcomes of the proposal is reduce the amount of time education researchers must spend in analyzing the video by using these advanced technologies. The study will also explore whether these techniques can provide different insights into video text data. The proposal will contribute to further collaboration between mathematics researchers and education researchers.